Tensor Categories and Subfactors

Abstract:

Wenzl is continuing his study of tensor categories related to quantum
groups and conformal field theory, with a particular emphasis on their
connection with subfactors. Braided tensor categories related to
classical Lie groups can be conveniently studied via Hecke algebras
and q-versions of Brauer algebras, also called BMW algebras. Wenzl
plans to study the question whether categories related to exceptional
Lie groups can similarly be described via suitable braid representations.
Moreover, a detailed knowledge of such braid representations, combined
with additional categorical constructions, such as the double construction,
might also be useful for understanding various exotic subfactors.

Physical systems usually have symmetries which can be expressed via
groups and their representations. In recent years, one has encountered
new situations in confomal field theory with a highly nontrivial
tensor product operation called fusion. Unlike the group case, it is
no longer symmetric, but only braided. Moreover, the numbers which
naturally occur as 'dimensions' of representations of the symmetries are
no longer integers. This is a situation very familiar in the theory of
von Neumann algebras. Wenzl plans to study the above mentioned symmetries
in the context of von Neumann algebras. He will mainly consider algebras
generated by unitary representations of braid groups. Such representations
are comparatively rare, and hence provide a good tool for classifying
models of the type mentioned above.